College of the Mainland Wide Area Instructional Network: Connections to NSFNET

9421203 Doak This project connects College of the Mainland to the Internet over a T1 line. Faculty and Students at the school benefit form access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for one year.